William Rowan Hamilton Geometry and Topology Workshop

Abstract

Award: DMS-0846968
Principal Investigator: Martin Bridgeman, Noel Brady, Tao Li

The award supports US speakers and invited US junior researchers
attending the fourth William Rowan Hamilton Geometry and Topology
Workshop, a 3-day, directed workshop to be held at the Hamilton
Mathematics Institute in Dublin, Ireland in August 28-30,
2008. Participants at the workshop include leading researchers,
junior researchers and graduate students from the fields of low
dimensional topology, geometric group theory, and hyperbolic
geometry who have a special interest in problems related to
Heegaard splittings, mapping class groups, and curve complexes.
Specific topics include the relation of the combinatorial data of
a Heegaard splitting to the hyperbolic structure on the manifold
and applications of Masur-Minsky techniques on the curve complex
to the Surface Subgroup Conjecture and the Virtually Haken
Conjecture. There is already a growing tendency for researchers
in each of areas of Heegaard splittings, mapping class groups,
and curve complexes to use techniques from the other two
areas. This workshop should increase this, and will focus
collective energies on common themes.

Mathematicians who study low dimensional topology, geometric
group theory, and hyperbolic geometry are concerned about the
nature of symmetry. Examples include the symmetries of a
snowflake, frieze patterns in architecture, wallpaper and tiling
patterns, and symmetries of crystal or lattice structures in
chemistry. This award will enable leading researchers, graduate
students and junior researchers from the US to gather together
with researchers from around the world in order to combine
methods and techniques to further research. This activity will
help focus the research programs of the next generation of
researchers, and will deepen our understanding of the nature of
symmetry. This activity supports an ongoing international
workshop dedicated to forging bonds between the US mathematics
community and an emerging mathematics institute (the Hamilton
Mathematics Institute) in the European community.